Workshop for ARCSS/OAII Biological Initiative in the Arctic: Shelf-Basin Interactions

Funds are provided to sponsor an open workshop to develop a research plan for integrating studies of the Arctic Ocean shelves with the Central Basin. A goal of the Arctic System Science (ARCSS) Ocean-Atmosphere-Ice Interactions (OAII) global change research program is to foster the integration of various disciplines into cooperative research efforts that are relevant to understanding the effects of global change. Research has demonstrated the importance of determining Arctic continental shelf/ocean basin interactions and the cycling of biogenic materials at the sediment/water interface of Arctic continental shelves and slopes. The workshop will provide a forum for interested scientists to discuss and develop a prioritized science plan focusing on a biologically focused systems approach to shelf/basin exchange in the Arctic.